NSF Student Travel Grant for: Advances in Cryptology - Crypto 2018

This grant provides travel support for 15-20 US-based students to attend Crypto 2018 - the annual International Cryptology Conference - sponsored by IACR (International Association of Cryptologic Research) in cooperation with the Computer Science Department of the University of California, Santa Barbara. Since the first conference in 1981, Crypto has been held in Santa Barbara, California, and has become the flagship conference in cryptology, attracting researchers from all over the world. The scope of the work discussed and presented at the conference ranges from the theoretical foundation of cryptology to applications and the implementation of cryptographic schemes.

The funding will provide students who otherwise would not be able to attend the conference with the opportunity to discuss current research topics with world-class researchers in cryptography, and establish networks, connections, and mentoring relationships that will serve them well during their careers.